U.S. Student International Travel Support to Attend the 16th Annual Symposium on Operating System Principles; October 5-8, 1997; San Malo, France

This grant provides travel funds for about 40 US students from different institutions to attend ACM's 16th SIGOPS Symposium on Operating Systems Principles, to be held in France in October 1997. This symposium is being held for the first time outside of US. This symposium is well recognized as the premier conference for the leading-edge research in the field. In the past it has been attended by a large number of US students, as it has served in broadening the experience of promising young researchers and enriching their careers. The students will be selected through an open competition based on their research performance, potential to enrich the symposium, and diversity considerations.***